Utility of Patterned Electrical Stimulation for Controlling Cell Behavior

The objective of this project is to establish whether electrical
stimulation can provide similar, or potentially greater, levels of
control over neural cell behavior as the cocktails of chemical
factors currently used. To achieve this objective, two specific
aims are put forth by the Principal Investigator (PI):

1. Compare different patterns of stimulation with chemical
factors in their abilities to alter cellular behavior; as a
model, the PI will examine rescuing neurons from programmed
cell death (PCD).

2. Compare different patterns of stimulation with chemical
factors in effects on the calcium-sensitive cascade network
by measuring the signaling activity in different linear
branches of the network.

If electrical and chemical stimuli can elicit similar effects,
then a significant improvement in control over cellular behavior
will be achieved.